Enhancement of High Field NMR Facilities for Organic and Inorganic Structure Determination

Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to the chemist for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. This award from the Chemistry Shared Instrumentation Program will help the Department of Chemistry of Michigan State University to acquire a high-field NMR spectrometer and to upgrade an existing NMR spectrometer. The areas of chemical research that will be enhanced by the acquisition include: 1) Structure and function of various natural tetrapyrrolic macromolecules 2) Polycyclic aromatic compounds with multi-rotational barriers 3) New cycloaddition photochemistry and photochemistry of rotationally constrained compounds 4) Chemistry of low-valent metal clusters with unconventional ligands 5) Photochemistry of binuclear (Ir, Rh) complexes with fluorophosphine ligands 6) Lewis acid catalyzed organic rearrangements and cyclyzations.